Surface-Emitting Second-Harmonic Generation and Nonlinear Optical Devices Using Semiconductor Asymmetric Quantum Well Structures (SGER)

9406921 Ding A source of surface-emitting green light by frequency-doubling infrared laser beam in the waveguide consisting of asymmetric quantum wells is proposed. Quasi-phasematching is achieved by growing many units of asymmetric quantum wells, each of which is composed of two domains of multiple asymmetric quantum wells corresponding to "left" and "right" symmetries, and therefore, modulating second-order susceptibility along the growth direction. The conversion efficiency can be larger than 1%/W. The principal investigator proposes to subsequently implement miniature and integrable correlators, spectrometers, and phase detectors, based on the surface-emitting second-harmonic generation using asymmetric quantum wells. These devices can be eventually used in optical communications and ultrafast detection. ***